MRI: Acquisition of a Mass Spectrometer

This award is supported by the Major Research Instrumentation (MRI) and Chemistry Research Instrumentation (CRIF) Programs. Professor Jeffrey Johnson from University of North Carolina Chapel Hill and colleagues Gary Pielak, Marcey Waters, Leslie Hicks and Alexander Miller have acquired a high-performance quadrupole mass spectrometer with atmospheric pressure chemical ionization (APCI) capabilities. In general, mass spectrometry (MS) is one of the key analytical methods used to identify and characterize small quantities of chemical species embedded in complex samples. In a typical experiment, the sample components travel into a mass spectrometer where they are ionized and measured. This highly sensitive technique allows detection and determination of the structure of molecules in a complex mixture. The acquisition strengthens the research infrastructure at the University and regional area. Because it is in a multi-user core laboratory, the instrument broadens participation by involving diverse students in research and research training using this modern analytical technique.

The research enabled by this instrument is aimed at enhancing research and education at all levels. It aids the development of chemical transformations to enable rapid construction of complex natural products and congeners. It is also used to improve understanding of how the intracellular environment affects protein stability interactions and structure. The mass spectrometer is also used for designing and developing catalysts for the conversion of hydrocarbons, biomass, and carbon dioxide to commodity chemicals. The instrument serves researchers designing and characterizing new chemical probes.